Mathematical Sciences: Foliated Metric Rigidity Theory

9403527 Adams The scope of the research entails several projects in the area of metric rigidity theory on foliated manifolds. The main interest will focus around geometric-analytic techniques in the longitudinal direction and ergodicity techniques in the transverse directions respectively of the foliation. This research has potential applications to other areas of differential geometry and dynamical systems. ***